A Plan for Developing a Multi-University Industry/University Collaborative Research Center on Cyber Security

Stony Brook University will hold a planning meeting to join a multi-university Industry/University Cooperative Research Center for Cyber Protection. The membership in this collaboration will significantly enhance its strength in a number of areas. The primary research areas of the site will be software security, database and information security, intrusion detection, vulnerability analysis, trust management, and intrusion recovery and response.